WORKSHOP: Delivering E-Commerce: Logistics and the Online Revolution; Atlanta, Georgia

This grant provides funding for the workshop on Delivering E-Commerce: Logistics and the Online Revolution which will be held in Atlanta, GA from February 10 to February 11, 2000. The purpose of the workshop is to provide an environment for productive discussions and exchange of ideas that will lead to the identification of high-impact research areas in logistics and e-commerce in order to set an agenda for future academic research. The workshop will bring together leading industry practitioners and academic researchers to discuss issues in supply chain management. The objectives include: (1) establishment of a dialogue between industry and academia on the subject; (2) identification of important research issues in the area; (3) providing industry perspective on future academic research directions; and (4) setting of an agenda for future academic research on high impact topics.

The success of the workshop will lead to a better understanding of the challenges of supply chain operations in the information age. It will help foster industry and academic collaboration. The identification of high impact topics will guide future academic research.